Intergrated Seismic Risk Analysis for Earth Dams

This research upgrades the state-of-the-art of seismic analysis procedures by combining the probability predictions of seismic events with the probabilistic assessments of the performance of dams. The results of this study, therefore, will provide information critically needed to assess the seismic hazard and the consequent risk of damage to earth dams, for site specific conditions. This study will be made by first developing a seismic performance analysis method to identify the different modes of dam failure and establishing the damage probabilities based on the dam performance. The analysis results will then be combined with site specific seismic hazard evaluations to provide a methodology for estimating the eventual risk factors for dam failures.